Reading Rainbow

READING RAINBOW is a 25 part PBS children's television series produced by the Great Plains National Instructional Television Library, a part of the Nebraska Educational Television Network. It addresses the national problem of more and more youngsters reading less and less. This award-winning television series has been successful in using television to stimulate children ages five through nine to read good books. The series attracts an audience of 7.8 million children with ratings equal to those of THE ELECTRIC COMPANY and MR. ROGERS' NEIGHBORHOOD. Program evaluation shows equally enthusiastic responses from parents, teachers, librarians and, most importantly, children. Support will be provided for a series of five READING RAINBOW programs which focus on scientific themes. These episodes will be integrated into the on-going series and build on young children's curiosity and interest in the world as well as demonstrating to children how science relates to all aspects of their lives. In an increasingly technological society, children need stimulation to seek out books related to science, reinforcing early curiosity and strengthening life-long interest in science. Women and minorities are well represented on READING RAINBOW staff and in the productions themselves. Great care is taken to ensure a broad representation of people including racial and cultural groups, female and male, senior citizens and people with varying physical disabilities. Community outreach organizations involved include: the National PTA, American Booksellers Association, American Library Association, National Educational Association and the International Reading Association. In connection with the science series, Reading Rainbow staff will involve the National Science Teachers Association and a special public relations effort will be organized to promote READING RAINBOW to science museums and other organizations that conduct science education program activities for children.